SGER: Research in Computer-Aided Systems/Control EngineeringEducation: The Worldwide Web

9523489 Rugh Exploratory research is proposed to address new issues and potential benefits in the use of World Wide Web facilities in system and control engineering education. The underlying motivation is that appropriate use of this new technology will have a major impact on engineering education in the United States. ***